Collaborative Research on Learning Technologies: Digital Portfolio Archives in Learning: Modelling Primary Content Transformation for Science Education

9616396 Gilland-Swetland, Anne University of California - Los Angeles CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies Program: Digital Portfolio Archives in Learning: Modeling Primary Content Transformation for Science Education The University of California, Los Angeles has been awarded funding in the amount of $49,945 for a 12 month planning grant to develop a process model that (1) transforms primary sources into digital library content; (2) allows teachers to build personalized information systems or "Digital Portfolio Archives" (DPAs) that contain content and associated descriptions derived from the digital library, together with other relevant materials that teachers wish to incorporate; (3) enables students to incorporate components of teachers' DPAs, and (4) facilitates the optional incorporation of these DPAs back into the digital library, but as a distinct layer of user-created content distinguished to provenance. Content for the base digital library will be drawn from the seven archival, manuscript, and museum repositories at UCLA. The development and testing of the DPA process model builds on the work of, and feeds into several educational and technological initiatives underway at UCLA, including cross-disciplinary collaborations with the Smithsonian Institution, the Los Angeles County Museum of Art, and Special Collections at the UCLA University Research Library. This planning grant will generate: (1) generalizable processes for structuring digital libraries and enriching content descriptions that meet the needs of primary content creators, providers, and non-traditional users such as teachers and students; (2) knowledge of how teachers might select primary content and integrate it into classroom activities if it were digitally accessible; and (3) knowledge of how digitized primary sources might contribute to the enhancement of students' understanding of, and engagement in, the health and natural sciences.